Workshop on New Directions in Control Engineering Education, to be held at the University of Illinois, Urbana-Champaign, October 4-6, 1998

ECS-9812431 Spong This proposal seeks support to hold a Workshop on New Directions on Control Engineering Education on the campus of the University of Illinois at Urbana-Champaign, September 20-22, 1998. The purpose of the workshop is to bring together leaders from industry and leaders in engineering education to identify the future needs in control education that will be necessitated by rapid advancements in control technology. These advances are occurring at an ever increasing pace in sensor and actuator technology, microprocessor technology, and software, as well as in theory and in computer aided design methods. The expected outcome of the workshop will be a set of recommendations to help NSF determine new initiatives that might be created to best stimulate useful changes in control engineering education.